1997 Gordon Research Conference on Nonlinear Optics and Lasers; Colby-Sawyer College, New London, New Hampshire; July 27-31, 1997

This grant is for support of students and young researchers to attend the 1997 Gordon Research Conference on Nonlinear Optics and Lasers at Colby-Sawyer College, New Hampshire, July 27-31, 1997.